I-Corps: Piezoelectric sensor for in-situ strength monitoring of infrastructure materials

The broader impact/commercial potential of this I-Corps project is the development of sensing technology to accurately monitor infrastructure conditions in real time. U.S. infrastructure has been deteriorating: Of 6 million bridges in the United States, 13.6% are obsolete, 9% are structurally deficient, and 39% have exceeded their designed lifetimes. The worldwide market for structural monitoring is estimated to increase to $3.4 billion in 2023 from $1.5 billion in 2018 at a compound annual growth rate of 17.9%. Development of cost-effective and user-friendly sensing technologies is important for construction, maintenance, and rehabilitation to monitor concrete strength and evaluate infrastructure condition. The proposed technology may mitigate premature failure and reduce infrastructure construction/maintenance costs, save the time of construction workers and commuters, ensure safety by limiting in-field operations, and enabling data-driven infrastructure-related decisions. This may help to ensure the safety of commuters/travelers and construction workers and reduce expenditures on infrastructure construction and maintenance.

This I-Corps project is based on the development of a wireless sensing technology for real-time concrete strength monitoring. In-situ and real-time monitoring of construction materials, such as concrete, is crucial to the safety and security of our nation’s infrastructure. However, available non-destructive techniques typically measure concrete temperature and refer to a database of strength versus temperature information developed in lab settings for a specific concrete mix to determine the strength. In contrast, the newly developed technology enables direct measurement of in-situ strength of concrete in real-time. Benefits include high accuracy, fast response, no need of data-base calibration, significantly reduced cost, and ease of implementation.